National Physical Science Consortium for Graduate Degrees for Minorities and Women

Lawrence Livermore National Laboratory will spearhead establishment of a Consortium of universities, employers, and national laboratories -- dedicated to aiding underutilized minorities and women earning graduate degrees in physical sciences. The intent is to generate sufficient momentum among initial members that the Consortium will be self-sustaining in three years. After discussion with many universities, employers, and national laboratories, NPSC has concluded that interest, conviction, and willingness to participate are abundant. Gestating this idea is not administering but defining a structure that binds members in a common goal, plants the seeds for administrative and fiscal responsibility, promotes the freedom that recognized institutions of learning require while developing worthy intellect. This award focuses on underutilized minorities and women: attainment of their graduate degrees, monetary assistance, and a network of mentors to provide counselling and support. LLNL aspires to see NPSC become a viable entity and then become a sustaining member of a productive organization.